Parallel Solution Methods for HP Version Finite Element Analysis

The objective of the proposed work is to complete a feasibility study on the development and eventual practical application of an advanced software product designed for solving systems of simultaneous algebraic equations which arise in connection with the p- and hp- versions of the finite element, utilizing massively parallel computer systems.